Some Variants of the Kakeya Problem

(1) This project will focus on certain geometric questions from classical
analysis which have their origins in the well-known Kakeya problem: find
the minimum dimension of a subset of d-dimensional space which contains a
line segment in each direction. Of particular interest to the p.i. are
estimates from below for the Hausdorff dimension of sets which have large
intersections with certain collections of lines, planes, or spheres (or, in higher
dimensions, with certain collections of k-planes or hyperspheres). A theme of this work
will be to explore the scope and limitations of a particular method, due
to the p.i., for treating the averaging operators which arise in the study of
these problems.

(2) This project is concerned with the structure of certain complicated
subsets of higher dimensional spaces. The study of these sets, while of
compelling intrinsic interest, should properly be viewed as a test of our
current understanding of certain objects called averaging operators. The
relevant averaging operators here are of two kinds: spherical averaging
operators and Radon transforms. Spherical averaging operators are basic to
our understanding of the propagation of waves through fluid media such as
the ocean or the atmosphere. The Radon transform and its relatives are
essential, for example, in problems of tomography such as those which
arise in the field of medical imaging.